Electronic spin and valley degrees of freedom - based novel quantum devices

Electrons, besides being charged particles, have an extra, quantum degree of freedom, namely their spin. In certain materials, electrons also have a valley degree of freedom, which is related to their momentum. Spintronics and, more recently, valleytronics, are emerging areas in solid-state science and engineering. Their broad goal is to utilize carriers' spin/valley degrees of freedom to realize novel electronic devices that rely on the creation, manipulation, and detection of spin/valley currents. If successful, such manipulation could also impact the even more exotic field of quantum computing, as spin/valley are candidates for registering the quantum bit of information in quantum computers. The focus of the projects proposed here is to study ballistic transport in clean carrier systems in layered semiconductor structures. The goal is to demonstrate and characterize a number of novel, prototype, electronic devices whose operation relies on the manipulation of spin and/or valley degrees of freedom. The projects also incorporates comprehensive educational component, including training of graduate and undergraduate students in fabrication, characterization, and physics of thin-film semiconductor structures. Outreach activities involve K-12 demonstrations and teacher training programs in electricity and magnetism.

The projects proposed here are aimed at studies of ballistic transport in clean, two-dimensional carrier systems in modulation-doped semiconductors. The goal is to demonstrate and characterize a number of devices whose operation relies on the manipulation of spin and/or valley degrees of freedom. These include a spin-interference device, a spin-filter, and a valley-filter. The devices will be based mainly on two different carrier systems: (1) two-dimensional hole system in GaAs quantum wells which possesses a strong and tunable spin-orbit interaction, and (2) two-dimensional electron system in AlAs quantum wells where the electrons occupy conduction band valleys with gate- and/or strain-tunable densities, and also have a large Lande effective g-factor so that they can be easily spin-polarized. All the projects described in this proposal will involve fabrication of various devices using modern crystal growth and lithography techniques, and transport measurements. The projects will contribute to the fundamental understanding of the ballistic transport in semiconductor structures. While the proposed structures would operate mainly at relatively low temperatures, they will serve as prototypes to demonstrate proof-of-principle concepts that are essential for advances in the emerging fields of spintronics/valleytronics and quantum computing. The projects can also lead to the development of unforeseen device concepts.